High-resolution observational constraints on the astrophysics of near-circumstellar AGB environments

AST-0507473
Athol Kemball
University of Illinois at Urbana-Champaign
High-resolution observational constraints on the astrophysics of nearcircumstellar
AGB environments

ABSTRACT
Recent instrumental advances on the Very Long Baseline Array, combined with new techniques for
millimeter-wavelength polarimetry over the past decade, have opened a science window on the
near-circumstellar environment of evolved stars unmatched by any contemporary telescope. The
technique employed here allows the astrophysics of this region to be probed by the polarization
properties of the silicon monoxide maser components located in the extended atmospheres via
synoptic imaging campaigns across complete pulsation periods of the central star. Here Very Long
Baseline Array observations of maser emissions in the near-circumstellar regions of asymptotic
giant branch (evolved) stars will be carried out. The goal is to provide constraints on various
astrophysical models by: 1) measuring the magnitudes and orientation of magnetic fields in the
extended atmospheres, 2) determining whether asymmetric mass loss begins at an early phase of
asymptotic giant branch evolution, and 3) exploring the possible connection between the central
stars and their close circumstellar environments. A series of specific research tasks (and associated
sub-tasks) are outlined which employ synoptic maser observations over entire pulsation cycles to
(among other goals) map kinematics and shocks, to use polarization and population inversion to
infer magnetic fields and turbulence, and to discriminate between various models for polarized
maser propagation and silicon oxide maser pumping. The latter studies are vital in order to provide
unambiguous estimates of the surface magnetic fields in these stars. The results of this work are
expected to have an impact on studies of the physics of maser polarization, models of evolved stars
and the process of planetary nebula formation.

This work will help to train graduate students in the data reduction methods and analysis. In
addition, the animated movies of maser emission toward late-type stars which are a by-product of
this research, will be disseminated to the public through various outreach efforts. The final steps
necessary to automate fully the existing calibration and imaging pipeline, which will be developed
here, will also be available to the community. This will sharply lower access barriers to the Very
Long Baseline Array.